Issues in Technological Literacy for Liberal Arts Majors: Prospects and Recommendations

This project is concerned with the introduction of engineering and technology into the liberal art curricula at the undergraduate level. It is intended that liberal arts faculty members as well as engineering and technology faculty members be involved from the inception of the project. A key workshop is organized to study current efforts and concentrate on recommendations for future efforts. The agenda includes issues in engineering and technology for liberal arts majors, discussions of mechanisms to attract a critical core of faculty and identify evaluation and measurement techniques and processes. Each participant in the workshop is expected to discuss their experiences, insights and recommendations for enhancing the technological literacy of liberal arts majors. A proceedings which summarizes the major aspects of the workshop is developed and distributed. A project plan for a full study of technological literacy for liberal arts majors is generated.